U.S.- France Cooperative Research (INRIA): Formal Specification and Transformation of Parallel Programs

This three-year award for U.S.-France cooperative research in computer programming languages involves Jean-Luc Gaudiot of the University of Southern California, Isabelle Attali of the French National Institute for Research in Computer Science and Engineering and Applied Mathematics (INRIA) at Sophia-Antipolis, and Denis Caromel of the University of Nice. The award provides travel support and subsistence to Dr. Gaudiot for his collaboration with the French researchers. The objective of the research is to investigate formal description and extension of parallelization techniques and algorithms for compilation of programs written in a functional language (Sisal) and in a parallel object oriented language (Eiffel). They will also explore their effectiveness in designing parallel programming. The project takes advantage of access to a programming language known as Eiffel which was developed by the French investigators.